Collaborative Research: WOCE Hydrographic Program Sections 18N and 15E (8 Degrees E and 35 Degrees S): The Tropical and Subtropical Central Indian Ocean

9413160 Talley In this project, the PI will conduct basic hydrographic operations on the central Indian Ocean meridional section along 80 deg E, and the eastern part of the zonal section along 33 deg S (designated lines I8N and I5E respectively under the World Ocean Circulation Experiment - WOCE). Data will be used to look at inflow of deep water into the Central Indian Basin, the fate of the deep water (in conjunction with the other WHP sections), the meridional structure of equatorial currents, particularly the deep ater, and the vertical structure of the subtropical gyre. I5E will be used to measure the Leeuwin current and will provide a check on time variability, when compared with the first occupation of this section in 1987.